EIA: Optimal Siting Design and Coordination of Power SystemStabilizers

Research aimed at development of systems approach for optimum siting, design and coordination of power system stabilizers. The system approach is to be based upon decomposition techniques, eigenvalue analysis and adaptive control methodology. Research aimed at analysis techniques for better engineering design of devices used to damp electrical oscillations.